First International Conference on the Release of GeneticallyEngineered Microorganisms (REGEM l): Cardiff, Wales; April 5-8, 1988

Funds will provide partial support for travel by American scientists to participate in the first International Conference on the Release of Genetically Engineered Microorganisms (REGEM 1). The Conference will convene April 5-8, 1988, in Cardiff, Wales under the auspices of the Society for Applied Bacteriology (SAB), the Society for General Microbiology (SGM) and the American Society for Microbiology (ASM). The Conference has as its goal to serve as a forum for scientists throughout the world to discuss recent advances in microbial ecology and molecular biology as they relate to environmental releases of genetically engineered microorganisms. The conference program will consist of three morning sessions of invited speakers. Roundtables are scheduled for the afternoons and posters will be on display throughout each day. The Conference will enable scientists with different educational backgrounds and experience to interact so each can benefit from the special knowledge of the other. Adequate American participation in the Conference is of special concern, because the issue of environmental release relates directly to the capacity of this country to maintain its present competitive advantage in molecular biology and biotechnology as applied in the agricultural, environmental and medical sciences.